Preparation, Characterization, and Chemistry of Technetium Oxide Complexes

This award in the Research Planning Grant for women program is made by the Chemistry Division to Dr. Lynn C. Francesconi of the Chemistry Department, Hunter College-City University of New York. The bonding, structure, and reactivity of technitium-oxygen compounds would be investigated. During the planning period, two strategies for incorporating Tc, and its congener Re, into polyoxoanions of molybdenum and tungsten would be attempted. Successful completion of this preliminary research would allow work to proceed on synthesis of a wide variety of compounds containing technitium-oxygen bonds. A long-term goal of research in this area is to enable the separation or immobilization of technetium, which has a long-lived isotope common in nuclear waste site contaminants, in borosilicate or phosphate glasses.